Instability of the Wetting Tip in Lead-Free Solder Reactions

9705195 Tu It is the purpose of this research to investigate the wetting behavior of Pb-free solders on thin film metallization. Emphasis is on the wetting tip behavior and intermetallic compound formation during soldering. Investigated is a unique thin film reaction where the grains ripen and spall resulting in dewetting. To understand the basic science of reactive wetting and the applications to thin film metallization in electronic packaging, two main topics are the focus of the research: (1) the instability of a reactive wetting tip and (2) the mechanisms of spalling and dewetting. The dependence of wetting angle on the composition of Sn in dilute Pb(Sn) alloys is examined. It is expected that the wetting angle changes observed in the case of Pb(Sn) on Ni will be less than that of Pb(Sn) on Cu, which, in turn, will be much less than that of Pb(Sn) on Pd. Previous work shows that the wetting angle of molten eutectic SnPb on Pd is unstable and changes with time. A systematic and comparative study on Ni, Cu, and Pd surfaces is conducted.. %%% Solder technology is essential for electronic packaging. The Semiconductor Industry Association (SIA) has projected a trend of increasing use of solder in device manufacturing. The US Congress and Environmental Projection Agency (EPA), however, has expressed a concern over the use of Pb in the electronics industry. As a consequence, lead (Pb)-free solders and their processes, properties and reliability need to be studied. ***